Sub-Nanosecond Arithmetic II

This project is attempting to speed up computer arithemtic by several orders of magnitude using a combination of algorithmic, circuit, and packaging techniques. CAD tools to automate the application of these techniques are also being developed under the project. Specific research problems include the development of a package capable of passing large numbers of signals with 100 picosecond rise times, and the integration of wave pipelined data paths into an overall system.